Postdoctoral Research Fellowship in Plant Biology

This is a Postdoctoral Research Fellowship in Plant Biology to support Dr. Dewey's research and training under the mentorship of Dr. Daniel Klessig. The proposal outlines experiments designed to define the targetting signals necessary for extracellular protein transport, and intracellular compartmentalization into the central vacuole, in higher plants. To determine the factors required for extracellular protein secretion, a pathogenesis-related protein of the PR1 family from tobacco will be used as a model system. To determine factors required for compartmentalization to the vacuole, a proteinase inhibitor from tomato will be used. Thess model systems are particularly suitable for the proposed studies because of the small sizes of the polypeptides and the wealth of background information available about their structure and biosynthetic processing. Genetic manipulations of the genes coding for these two proteins will be performed, including interchanging of gene sequences between them, and attachment of the sequences to reporter genes. The results of these experiments are expected to provide us with important insights into the protein structural features which contain the information required for proper routing of newly synthesized proteins to their ultimate subcellular destinations.